Prototyping and Quantitative Assessment of an Intuitive Virtual Reality Environment and Its Application to Grand Challenges to Computational Science

9213822 Defanti This is the third year funding of a three year continuation award. Virtual reality includes 3D display of views which track the user's perspective viewpoint in real time. Two major existing modes are head-mounted displays (HMD) and boom-mounted displays. This work is on an alternative environment: a room ("CAVE") constructed from 7'x7' screens on which graphics are projected. This work will add engineering enhancements to improve the performance and sonic feedback of this room. Quantitative assessment of the benefits of this type of display for a number of tasks will be done. Collaborative effort will take place with discipline scientists working on grand challenge problems in computational science.